VPW: Studies of Thin Films by Synchrtoron X-Ray Scattering

This research includes a quantitative X-ray resonant magnetic scattering study of the magnetic phase behavior of the HoPr site- random thin film alloy as function of concentration. The study entails: o chemical and magnetic structural characterization of HoPr samples ranging in concentration of 20%Pr/80%Ho to 80%Pr/20%Ho to elucidate the RKKY indirect magnetic exchange interaction in the rare earth elements. o Studies of magnetic wavevector and the magnetic order parameter of Ho and Pr atoms separately, by tuning the incident energy at the Ho LIIIedge and Pr LIIedge. o Measurement of the induced moments on the Pr atoms. The research also includes characterization of the interfaces in the semiconductor system InAs/GaSb, by X-ray reflectivity and anomalous scattering. This artificially grown quantum heterojunction, has received considerable research attention, due to the potential application for optical and electronic devices. The interactive activities include: teaching two courses in project WISE; collaborating with Prof. Emilio Mendez on semiconductor research, and interacting with Prof. Richard Gambino on new magnetic materials and Prof. Peter Stephens on synchrotron related projects; acting as advisor and mentor to the female students in physics; and presenting a formal graduate seminar in X-ray magnetic scattering.